Biodiversity and Ecosystem Informatics: Event and Process Tagging for Information Integration for the International Gulf of Main Watershed

EIA-0131912
Beard-Tisdale, Mary-Kate
University of Maine

BDEI: Event and process tagging for information integration for the International Gulf of Maine Watershed

Project Summary

This incubation proposal addresses the issue of integrating large, diverse, and autonomous
collections of scientific data within a complex institutional setting. The goal is to convert these
autonomous collections into a shareable repository that supports synthesis of data through new
metadata structures based on events and processes. The institutional setting is the data and data-
gathering activities of over 80 agencies, NGOS, and academic and research institutions operating
within the Gulf of Maine watershed. The metadata development will be coordinated by library and
spatial information scientists working jointly with domain scientists. An essential task of this
incubation effort will be the development of a shared understanding of environmental processes and
events that becomes a shareable ontology.

Libraries play a vital role in organizing intellectual access to creative works. Scientific data has
tended to be outside this traditional purview and has thus lacked the benefits of cataloging and
indexing that promote shared access. We are proposing a new metadata structure that exploits
common units of analysis in environmental studies: events and processes. Associating scientific data
sets with event and process tags, in addition to other metadata elements, can substantially improve
the ability to integrate and synthesize diverse scientific collections. The metadata initiative of this
proposal will lay the foundation for specifying events and processes through the collaboration of
data collections content specialists and information management specialists.